CPS Principal Investigator Meeting 2012

This award supports the third annual NSF Cyber-Physical Systems (CPS) program's Principal Investigator meeting, Gaylord National Hotel, National Harbor, Maryland, October 3-5, 2012. This working meeting enables increased NSF interaction with projects, visibility into progress of the CPS research portfolio, and information exchange and interaction across CPS research projects. The PI meeting also provides an opportunity for interaction among CPS research community and industrial participants, international speakers, and officials from U.S. government agencies.